Vocal Communication Among Dolphins: A New Approach

The purpose of this two-year research project is to solve the problem encounter by behavioral researches of not being able to identify a vocalizing delphinid or other cetacean when the animal is in a group. In order to solve this problem, a methodologywill be designed, constructed, and tested which can be used to identify vocalizers. At the successful completion of the project, other researchers will be able to benefit from this equipment and methodology needed to understand the auditory cognitive process in delphinids and cetaceans.